Oceanographic Technical Services R/V Laurentian

0071382
Goad
This award to University of Michigan provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using R/V Laurentian, a research vessel operated by University of Michigan as part of the University-National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded researchers conduct lacustrine studies in Lake Michigan and the other Great Lakes in CY2000 and beyond.
***